Math Beans: Mathematical Software Components for Web-base Instructional Materials

This project addesses the problem of incorporating technology into science education without asking students to master complex programs and without requiring authors of instructional material to master Java programming.

The objective of the project is designing and implementing a collection of mathematically oriented Java "Beans" (software components) that can be used as interactive illustrations on Web pages. We call these components Math Beans. A Math Bean should be limited in scope, and easy enough for students to use so that it requires almost no instructional overhead. Furthermore, it should be easy for authors of Web pages to use. The configurability of Java Beans means that properly designed beans can be adapted, without programming, to a range of specific applications. In this proof of-concept project, the objective is to produce several dozen Math Beans covering a range of applications and to provide a basis for further development.

The material we develop will be published on the Web. A workshop will be held in Summer 2000 for faculty who are interested in using Math Beans and the Web in their courses.